SBIR Phase I: Ultra-Fast Software Image Reconstruction for Micro-CT

This Small Business Innovation Research (SBIR) Phase I project aims to develop a fundamentally new, algorithmically accelerated, software based image reconstructor for x-ray micro-CT imaging. This will reduce the time to reconstruct high-resolution 3D micro-CT images without increasing the cost of the hardware.

The project will provide a powerful tool for the imaging of animals in drug discovery and for the study of disease process and genetics The proposed innovation will lead to the development of improved therapies and help improve health care overall.